Kinetics of Surface Reactions Studied by Laser-Induced Thermal Desorption with Fourier Transform Mass Spectrometry

9313169 Hemminger In this research project, supported in the Analytical and Surface Chemistry Program, the kinetics of reactions carried out on well characterized solid surfaces will be examined. The research supported here will concentrate on the detailed mechanisms and kinetics of hydrocarbon reactions on transition metal surfaces. These kinetic studies will be carried out using a technique developed by Professor Hemminger known as laser induced thermal desorption Fourier transform mass spectrometry (LITD/FTMS). The goal of this work is to apply this LITD/FTMS method to the study of the effect of adsorbate ensemble configurations on reaction rates, and to identify and quantify the effects of hydrogen coadsorption on the mechanisms and kinetics of hydrocarbon reactions. Additional work will address the kinetics of organometallic adsorbate decomposition on transition metal surfaces as a possible route to the synthesis of reactive intermediates on these surfaces. %%% An understanding of the detailed mechanisms and kinetics of hydrocarbon reactions on well characterized tranisition metal surfaces is important for developing an understanding of heterogeneous catalysis. The research supported in this project will provide the mechanistic and kinetic details needed to help understand issues of reactivity and selectivity in catalytic systems. A very sensitive instrumental technique, laser induced thermal desorption coupled with Fourier transform mass spectrometry, will be used to obtain this basic information. An understanding of these transition metal catalyzed reactions will help to design more energy efficient and more environmentally sensitive process chemistry. ***